Mathematical Sciences: 1994 Wiener Centennial Symposium

9412279 Maxwell The American Mathematical Society requests a grant in the amount of $25,520 for Wiener Centennial Symposium, to be held in October, 1994. Members of the Organizing Committee for the Wiener conference are: David Benney (ex-officio; Head, Dept of Math., MIT) Roger Brockett (Division of Applied Sciences, Harvard) Donald Burkholder (U of Illinois) David Jerison, Chair (MIT) Henry P. McKean (Courant Institute, NYU) Daniel Stroock (MIT) Isadore M. Singer (MIT) Elias M. Stein (Princeton) Rather than organize a commemorative workshop reviewing Wiener's work, the organizing committee intends to use the occasion of the centennial of his birth to alert young researchers to the many researchers to the many opportunities in analysis and its applications in the spirit of Norbert Wiener. The Organizers plan a weeklong conference in October 1994. The Conference will take place at M.I.T., and the mathematical portion will be co-sponsored by the American Mathematical Society and MIT.